CAREER: Efficient Large Language Model Inference Through Codesign: Adaptable Software Partitioning and FPGA-based Distributed Hardware

Artificial intelligence (AI) has entered the "age of scale". Huge amounts of training data are being used to train enormous deep neural networks (DNNs) on large-scale computers as epitomized by the rise of large language models (LLMs). The extremely high demand for this technology is clearly evident, as recently exemplified by ChatGPT: an LLM chatbot that garnered 100 million active users merely two months post-release, setting a new world record. However, deploying LLMs can be quite costly, given that their memory footprint can extend to terabytes of data while also demanding high computational resources. Consequently, large-scale distributed computers have become essential, particularly to meet the performance required for interactive applications. To improve efficiency, this project tackles new challenges that are specific to LLMs, including their large memory footprint, varying computational demands, and distributed computing. This is critical to make LLMs more accessible and sustainable for widespread use. Concurrently, this award seeks to develop a diverse AI workforce proficient in algorithms, hardware, and software, achieved through a large-scale AI course for diverse student population at public universities, comprehensive curriculum integration, and student mentorship at both graduate and undergraduate levels.

This project will enable the codesign of LLMs and distributed computing platforms, divided into three major thrusts that correspond to three levels of the computing stack: software, hardware, and algorithms. Initially, the project will focus on automated partitioning and mapping algorithms, as these form the foundations by which LLMs can be deployed and optimized on both existing and new distributed computing platforms. Key to this research thrust is the development of an extensible hardware performance estimator that can model current GPU-based systems alongside new distributed computing approaches. In particular, the second thrust investigates the use of in-network and near-storage FPGAs within distributed systems to speed up LLM inference. The final thrust investigates platform-aware compression for LLMs, including mixed-precision quantization and low-rank approximation. In addition to improving LLM efficiency across the computing stack, this project will develop a research framework to synergistically co-optimize LLMs and distributed hardware platforms, resulting in new optimized LLM computing systems and implementation methodologies.